Studies in Experimental Nuclear Physics at Indiana University

The Indiana nuclear physics group plans to assume a leading role in the
investigation of the following critical questions in nuclear physics.
The spin of the proton is an essential property that determines the
structure of matter, yet we know that only a small part of the spin
comes from the three quarks that form the proton. The STAR-SPIN group
would definitively measure the contribution from the gluons, the
short-lived particles that hold the quarks together and which account
for much of its mass to see if that is where the missing spin
resides.The measurement of the gluon contribution to the proton spin
will be carried out by adding a special detector for high energy gamma
rays to the STAR detector located at the Relativistic Heavy Ion
Collider. The detector is now being built using separate NSF
construction funds.
The force between pairs of neutrons and protons cannot, by itself,
account for the strength that binds the nucleus together. New,
three-body forces are needed, but their form is almost unknown. By
manipulating the neutron and proton spins when three of them come
together, the PINTEX collaboration would produce a map to guide a theory
of such three-body force. . FY2002 will be the last year of data taking
using the intense beams and unique capabilities of the Indiana
University Cooler Facility to study these three-body forces.
The weak force between nucleons, which can change the form of matter, is still poorly understood. By making a measurement accurate to one part in a billion on the formation of a deuteron from a neutron and a proton, the IU neutron group would measure the longest-range part of the weak force . The Indiana group would support studies of the weak force and other effects accessible using cold neutrons at NIST and LANSCE and by
providing crucial parts of the experimental apparatus.
There is mounting evidence that neutrinos, one of the most ubiquitous
particles in the universe, may have mass, thus changing our most elegant
theories of matter and how it controls the expansion of the universe.
The neutrino group would check a recent observation from LANL of a few
cases where neutrinos, because they have mass, spontaneously change from
one neutrino type into another by collecting a large enough data sample
to settle this issue.
A key component of the Indiana program will be the training of students
to become the next generation of researchers. This effort includes the
involvement of post-doctoral associates in critical experimental roles,
guiding the research of graduate students, involving undergraduates
through the NSF-funded REU summer program and part-time employment, and
reaching out to make the community aware of our scientific mission.